CAREER: To the Frontiers of Few-Nucleon Effective Field Theories

Modern Nuclear Physics rises to the challenge to understand how the complex
structure of hadrons and nuclei at low energies emerges from Quantum Chromo
Dynamics QCD, the fundamental theory of strong interactions. Effective Field
Theory, the model-independent, systematic description at low energies, has
lead to a vibrant interplay between experiment and theory.

The goal of this project is a better understanding how the internal structure
of nucleons and few-nucleon systems emerges from QCD: The heart of its
approach are model-independent estimates of its theoretical uncertainties
which in turn lead to reliable determinations of nuclear binding effects and
few-nucleon forces. Both encode essential information about QCD. I merge this novel
description with well-developed but sophisticated numerical techniques to
extend it into the realm of light nuclei. Besides the intrinsic interest, I
will investigate few-nucleon reactions which are hard, if not impossible, to measure
but essential for Astro-Physics (e.g. in big-bang nucleo-synthesis or
supernovae) and for tests of extensions of the Standard Model of Particle
Physics. Such an approach is in addition vital to compare and understand
proton and neutron properties with a minimum of theoretical prejudice. I therefore
provide model-independent parameterisations and predictions in close contact with a
variety of current and upcoming experiments. One focus is to extract the
nucleon polarisabilities, and in particular the so-far poorly explored
spin-polarisabilities, which contain essential information on the constituents
and spin-structure of the nucleon.

With research and teaching inseparable in higher education, I will train
both undergraduate and graduate students in communication and teaching skills
in a non-traditional format, enabling them to raise the general standard of
scientific literacy. Students will apply the acquired skills in GW courses for
school teachers and high-school pupils in the DC area, where the
socio-economic and educational indicators are particularly low.